Summer Science Camps for Seventh and Eight Grades at Jackson State University.

The Summer Science Camp Program is designed to rejuvenate the student interest in natural science and mathematics at an early age. Annually, forty-eight seventh and eighth grade African-American students are exposed to natural sciences, mathematics, communication skills and computer science in an intensive four-week residential summer session at Jackson State University (JSU). Activities include classroom instruction and laboratory demonstrations/experiments and involve individual as well as group interaction with communication skills (oral and written), applications of mathematical concepts, and computer applications. Upper level science technology students serve as mentors for the participants and continue this contact throughout the academic year as well as actively assist the instructors. In addition, speakers from local industry and JSU serve as invited speakers; students take field trips to science museums, planetariums and federal laboratories. Students will participate in similar programs until grade twelve and will be tracked throughout their academic career.